Novel Methods in Computer-Aided Circuit Design and Testing Using Recursive Learning

This research investigates modeling and estimation of power consumption as well as techniques for minimizing power at the various levels of design abstraction (layout, logic, register- transfer and behavioral levels). Principles and methods to guide the design of power efficient electronic systems are being explored; and the impact of availability of low-power design techniques on chip, module, and system level designs is being assessed. Topics being investigated include: spatio-temporal power estimation; state assignment for low power; power dissipation in boolean networks; common subexpression extraction; and FPGA synthesis for low power.